Geometric group theory, analysis on metric spaces, and geometric flows

Abstract

Award: DMS-0505610
Principal Investigator: Bruce A. Kleiner

The first part of the project concerns two geometric evolution equations:
mean curvature flow and Hamilton's Ricci flow. The main objective
is to understand the structure of the singular set and the geometry of
the solutions near the singular set.
The second part of the research program is motivated by geometric
group theory and rigidity questions, specifically the asymptotic
structure of negatively curved (or Gromov hyperbolic) spaces.
This leads to an investigation
of spaces which have a self-similar character using analytic
tools that have been developed in the last few years. Here
the goal is to quasisymmetrically deform
the space into an optimal form, if possible,
in order to reveal hidden symmetries; show that
no hidden symmetries exist; or show that the original space
was really a deformation of something familiar. This is directly
related to group theoretic rigidity problems.

The project aims to study two nonlinear analogs of the heat equation: the
evolution of surfaces by their mean curvature, and Hamilton's
Ricci flow. Mean curvature flow is a standard (idealized) model for
many physical process which involve an evolving surface, or interface,
between two regions in space. The Ricci flow -- an equation
governing a curved space geometry which evolves with time --
has made headlines lately due to its
prominent role in the spectacular work of Perelman on the 100 year old Poincare
conjecture. Much is known about the solutions of these two equations,
but many basic open questions remain, especially those tied with the
formation of singularities, which play a central role in Perelman's work.
The project will address some of these questions.
Another component of the research program is an investigation
of spaces which have a self-similar, or fractal character, using analytic
tools that have been developed in the last few years. Here
the goal is to deform the space into an optimal form, if possible,
in order to reveal hidden symmetries, show that
no hidden symmetries exist, or show that the original space
was really a deformation of something familiar. This is very useful
for understanding the asymptotic shape of infinite groups of symmetries.